Presidential Young Investigator Award

The focus of the research plan is the study of earthquake sources with the goal of a better understanding of the physics of strain accumulation and release during the earthquake cycle. To accomplish this the PI will develop new techniques in wave propagation and inverse theory.